U.S.-Mexico Cooperative Agreement for E791 and Pixel Research at Fermilab

0086456
Sheaff

This is a US-Mexico research project for a study in the field of experimental elementary particle physics. The research will involve primarily the analysis of data already in existence, but also cooperation on the development of radiation hard pixel detectors for the proposed BteV experiments at Fermilab. This type of detector is probably the most rapidly developing and revolutionary type of detector used in Fermilab.

The main goal of experiment E791 was to study charm decay Physics. It provided a unique opportunity to study total and differential cross sections as functions of the incident particle species and target material. However, the statistics available in E791 are some 50 times greater than in E769, and this new study aims to improve the cross section measurements for the so-called golden modes of charm.